POSE: PHASE II: Open VT - A Standardized Ecosystem for Virtual Tissue Simulation

Virtual Tissues (VTs) are powerful computer simulations of cell behaviors within tissues and
organs. They are a valuable resource and tool for researchers to delve into the mechanisms
driving both normal and diseased tissue behaviors. Although VTs do not replace traditional wetlab
experiments, they significantly contribute to the exploration and interpretation of existing data.
They enable researchers to conduct "virtual" experiments, offering guidance for additional
laboratory and clinical investigations. The combination of VTs with experiments leads to a deeper
comprehension of complex biological phenomena and bolsters the progress of scientific
understanding. VTs play a crucial role in drug and therapy research, as well as in the creation of
Medical Digital Twins for Personalized Medicine. Currently, there is a lack of infrastructure for
collaborative and progressive VT development. This limits their widespread adoption in biology
and medicine. To address this limitation, this project aims to establish an active open-source
community providing resources and tools—an ecosystem—that fosters collaboration among
researchers from diverse backgrounds. By facilitating the sharing and application of biomedical
data and models, this project can transform VT development, accelerating biological and medical
research and technological applications. Enhanced sharing and distribution of VTs will positively
impact STEM education because VTs present an excellent opportunity to accelerate learning of
fundamental biological and medical principles in an accessible, appealing, and comprehensible
manner. By incorporating VTs into educational curricula, the project can expand the reach of
STEM education and inspire future generations of scientists and researchers. This work both
expedites scientific discovery and understanding of complex biological systems and also
advances American biotechnology and medicine.

This project will create OpenVT, an open-source, community-driven collection of resources,
standards and tools for expanding the use and adoption of multicellular virtual-tissue (VT)
computer simulations of normal and diseased biological tissues. The OpenVT ecosystem will
initially unify and expand two existing widely used open-source platforms for building and running
VT models, CompuCell3D, and PhysiCell. OpenVT will enable sharable, cross-platform modeling
tools and shareable model specifications. OpenVT aims to accelerate the understanding of
complex biological mechanisms related to tissue development, homeostasis, and disease. The
project will focus on agent-based modeling (ABM) approaches, where tissues and organs are
constructed using discrete cells, coupled with subcellular network models of signaling, gene
regulation and metabolism and partial differential equations that simulate the extracellular
movement of oxygen, growth substrates, signaling factors, and therapeutic compounds. Specific
aims include: development of shared standards for specification of VT models between
CompuCell3D and PhysiCell, creation of cell-type description libraries, standardization of initial
conditions, and description of model outputs. These standards will then be used to define the
needed APIs that allow the interconnection and reuse of models and software components across
the two platforms, while also providing a concrete technical roadmap to support the integration of
additional open source ABM VT frameworks in the future. This approach allows for the integration
of subcellular, cell-level, and tissue-level phenomena, providing explanatory power and enabling
high-precision virtual experiments. The project will support the integration of other VT frameworks
and the creation of educational and distribution facilities to enable their widespread adoption and
extension of OpenVT. The OpenVT ecosystem aligns with successful community-driven initiatives
in scientific software development, such as the Systems Biology Markup Language (SBML)
project. It aims to foster collaboration, establish standards for model inputs and outputs, and
provide user support and training. By transitioning to an open-source ecosystem, the project aims
to reduce duplication of effort, promote software and modle sharing, and democratize access to
modeling capabilities. Project outcomes will be available at OpenVT.org.